Electrochemical Equipment for the Instrumental Analysis Laboratory

Electrochemical methods are becoming increasingly important in the studies of chemical, biomedical and environmental sciences. Laboratory experience is being offered in the principles and techniques of contemporary electroanalytical methods to chemsitry majors and other science students enrolled in instrumental analysis courses. The BAS 100A electrochemical analyzer capable of performing a wide variety of controlled potential techniques and computer data handling is being utilized in inorganic and organic trace analyses, kinetics and mechanism studies. The voltammetric techniques are being taught via an integrated electrochemistry workstation in a simple, rational and stimulating manner. Students who are generally more familiar with spectrochemistry and chromatography, are also using electrochemical techniques to equal advantage in solving analytical problems in their independent projects and undergraduate research. In addition, students in an environmental chemistry course are applying the electrochemical techniques to investigate "speciation" of metals and anions in electrochemical samples. The grantee is matching the award from non-Federal sources.